Earth Sciences Postdoctoral Research Fellowship Award

9704678 Burgoyn2 Methods will be developed for on-line preparation of H2 from subnanomole quantities of organic H and for continous monitoring of the hydrogen isotope ration (D/H) in the product. Integration of this system with existing isotope-ratio-monitoring technology will allow determination of hydrogen isotopic compositions of individual organic compounds separated by gas chromatography.